NUE: Enhancing Undergraduate Student Learning and Research Experience through Hands-on Experiments on Novel Nanohybrid Devices and Systems

This Nanotechnology Undergraduate Education (NUE) in Engineering program entitled, "NUE: Enhancing Undergraduate Student Learning and Research Experience through Hands-on Experiments on Novel Nanohybrid Devices and Systems", at the University of Wisconsin-Milwaukee,under the direction of Dr. Junhong Chen, aims to introduce the recent advancement of nanotechnology in hybrid nanomaterials and devices/systems to undergraduate students through nine well-designed laboratory modules which will be used to develop a new senior-level laboratory course as well as to enrich five existing courses of various levels at the UWM. The availability of the course modules and the new course on hybrid nanomaterials and devices/systems constitutes a timely update of the existing nanotechnology teaching materials database to reflect the forefront of nanotechnology advancement. The nanotechnology-related courses will be used to develop a nanotechnology certificate program at UWM in the near future and many of these courses will also be counted toward the existing integrated BS-MS program which can be used as a mechanism to attract students to pursue graduate degrees in engineering and science.